MRI: Acquisition of an EEG for Examination of Brain-Behavior Relationships Across the Lifespan

This Major Research Instrumentation award supports the acquisition of an Electroencephalography (EEG) system (ANT Neuro eego mylab128-channel) to establish the first EEG laboratory for brain imaging at Eastern Michigan University (EMU). EEG is a non-invasive human brain imaging method that measures neural electrical activity in the human brain arising from thinking and behavior with millisecond accuracy. The EEG laboratory critically expands neuroscience training and research in the Departments of Psychology, Communication Sciences and Disorders, and the interdisciplinary Neuroscience Program (Psychology, Biology, Chemistry). The EEG laboratory also has a substantial regional impact on the institutional community. EMU is recognized as one of the most diverse universities in the Midwest. The EEG laboratory allows EMU to contribute to the broader aims of the scientific community to recruit, retain, and promote members of minoritized groups into STEM fields. The laboratory allows for workshops to train local and regional faculty and students on neuroimaging, serve as a catalyst for the development of research assistantships and fellowships targeted for underrepresented students, including those from rural communities, and be central in creating a mentoring partnership with the McNair Scholars Program for students interested in EEG research. The EEG laboratory enhances collaborative research efforts within EMU, with partnering regional institutions, and foster national collaborations in developmental neuroscience.

Knowledge of the brain mechanisms underlying fundamental cognitive and behavioral processes (e.g. attention and language) in infants/children and older adults, the precise timing of developmental changes, and knowledge of crucial environmental factors that impact this timing has lagged behind research with younger adults and remains a frontier of investigation. EEG is non-invasive and well-tolerated by infants and children. This team examines the EEG signals and developmental timing of key cognitive and behavioral processes including attention and working memory, motor control, self-regulation, sleep, and communication. EEG event-related potentials, frequency (power), and brain connectivity in developing neural networks are explored. The electrophysiological mechanisms (spectral power and connectivity) underpinning the development of the default mode and dorsal attention networks and orienting system in infancy/toddlerhood are examined to clarify the relationships between attention and social-communication. The neural correlates of change of bimanual and unimanual motor control across the lifespan as well as the neural underpinnings of inconsistent hand preference and hand dominance are being investigated. Investigators are examining developmental changes and environmental precursors of event-related potentials hypothesized to underlie self-regulation. Investigation of the functions of napping, including neurophysiology and behavior, in early childhood provide vital information on reciprocal relations between the development of sleep-wake regulation and the development of attention. Finally, few studies have examined the neurophysiological mechanisms underlying working memory-linguistic processes in older adults. EEG is being used to explore the long-term learning effects and the compensatory processes that occur in older adults.